SGER: Past Futures and Technoscientific Innovation: Science Fiction in the Lives of Scientists and Engineers

SGER: Past Futures and Technoscientific Innovation:
Science Fiction in the Lives of Scientists and Engineers
Studying how past futures, or futures envisioned in the past through the visionary eyes of science fiction
writers, have shaped the present can help us to improve the future. The goal of this pilot study is to
explore the influence of science fiction in shaping the intellectual development of scientists and
engineers, especially during their formative years. This project meets the requirements for a Small Grant
for Exploratory Research (SGER) because it constitutes preliminary work on untested and novel ideas.
Specifically, it proposes to explore the idea that science fiction influences the career choices and research
trajectories of scientists and engineers, a notion for which anecdotal support can be mobilized yet which
has never been substantiated through empirical research. This pilot study will serve as the foundation for
a larger proposal for an NSF Scholars Award to conduct follow-up research on the relationship between
technoscience and science fiction.
This project emerges at the intersection of the fields of science and technology studies (STS) and
library and information science (LIS), and seeks to explore how exposure to science fiction influences the
career choices and research trajectories of scientists and engineers. In so doing, it merges the theoretical
strand of the social shaping of technoscience from the STS literature with work on mass media in the life
of the reader/listener/viewer/visitor/player from the field of LIS. The project is made possible by the
hybrid expertise of the PI, whose Ph.D. is in STS and whose current faculty position is in LIS, and who
has previously conducted NSF-funded research projects on the ethical implications of values embedded in
information technologies such as dissection simulations and computational models. This project will
allow the PI to further his research agenda at the intersection of the fields of STS and LIS, and to conduct
research that will make significant contributions to both fields.
The three primary objectives of this study are to develop a more robust understanding of the
relationship between technoscience and society, mass media, and science fiction. This study hypothesizes
that the career choices and research decisions of scientists and engineers are influenced by science fiction
as well as other mass media and social factors as a whole.
Data collection includes ten semi-structured, open-ended interviews with scientists and engineers.
Interview data will be analyzed using grounded theory such that research findings will be continuously
integrated to further refine the research design, leading to the construction of a theory that can provide a
preliminary explanation how society, mass media, and science fiction influence scientists and engineers
and which can be tested and refined through additional research. Results will be disseminated via
academic conferences and peer reviewed journals.
Intellectual Merit: This study will contribute to the STS literature by exploring the social factors that
influence the career decisions and research trajectories of scientists and engineers. The contribution to the
LIS literature will be detailed exploration of the relationship between technoscience and mass media
through an in-depth case study of mass media in the lives of scientists and engineers as
readers/listeners/viewers/visitors/players. Finally, this study will also contribute to the literature on the
relationship between technoscience and science fiction by exploring if and how science fiction might
influence the career choices and research trajectories of scientists and engineers.
Broader Impacts: This study also aims to produce broader impacts that focus on the recruitment and
retention of science, technology, engineering, and mathematics (STEM) students. First, by improving
understanding of how science fiction shapes the career choices of scientists and engineers, educators will
be able to determine when and how to use science fiction to promote student interest in STEM, potentially
reinforcing and legitimating existing educational programs. In addition, this study may also be able to
provide insights into how science fiction can promote diversity among STEM students, through emphasis
on female and non-white authors and characters and feminist and multicultural themes. Finally, this study
may discover ways that science fiction can help students majoring in STEM to become more conscious of
the social and cultural dimensions of science and technology.